Global Ring Network for Advanced Applications Development (GLORIAD)

GLORIAD: Global Ring Network for Advanced Applications Development

The Global Ring Network for Advanced Applications Development
(GLORIAD)
aims to better integrate, with an advanced network
infrastructure, the
science and education (S&E) communities of the US, Russia,
China, Korea,
Canada and Netherlands - as well as broader Europe as well as
Eastern and
Central Asia. It includes: a jointly managed, hybrid
circuit-switched and
routed network designed in a ring topology encircling the northern
hemisphere; and services to support increased S&E cooperation
for both
general and highly advanced (in terms of network needs) user
communities.
In addition to supporting active scientific exchange with
network services,
the project will provide a production environment for advancing the
state-of-the-art in collaborative and network technologies, including
Grid-based applications development, end-to-end circuit provisioning,
IPv4/IPv6 an d unicast/multicast services, advanced network
monitoring,
performance measurement and network security research. Supporting the
increased growth in global S&E cooperation, GLORIAD is
actively cooperating
with the world's most advanced S&E networks and programs to create a
rational, coherent strategy and architecture for the future of S&E
networking.